Workshop in Nonlinear Control Theory, May 27-31, 1992, Washington University, St. Louis, MO

This workshop will provide a forum for addressing future research directions in nonlinear control, and help coordinate U.S. and international research in this field. Topics of particular interest include: Stabilization and Nonlinear design; Artificial neural nets as nonlinear system components; Optimization, Optimal Control and Non-Smooth Methods; Applications: Robotics, Aerospace, Power Systems, Process Control...; Distributed-Parameter Nonlinear Systems.